The SCI-MA Connection (Mathematics/Science For Middle School Girls)

9352959 Price Bridgewater State College will initiate a six week residential, Young Scholars, Early Alert Initiative project in mathematics and physics for 40 students entering the seventh grade. Emphasis is given to hands-on and cooperative group experiments. Hands-on activities will employ Lego/Logo, Rocket and Robot Exploration and Amusement Park Physics. Career exploration, ethics of science and field activities are also offered. Extensive follow up activities which include a continuation of summer research activities complete the program. ***